Robotics in Construction and Environmental Restoration Operation

9602479 Kangari Cooperative research will be conducted with professor Yuri Villman at Robotics Lab in Moscow State University of Civil Engineering, Moscow, Russia, on robotics in construction and environmental restoration operations. This study will be focused on analyses of the feasibility of telerobotic and autonomous systems in construction and hazardous environment. The robotics center at Moscow State University has focused on comparing traditional, human operated systems with telerobotic and autonomous systems in environmental applications to determine the feasible uses of automated equipment in construction, mining, and environmental cleanups.